Research Initiation: Waviness Effect on Film Condensation

This project concerns a fundamental investigation in condensation heat transfer. Specifically, the enhancement effect of interfacial waves on film condensation heat transfer is to be studied by experimental and theoretical means.